SBIR/STTR Phase II: Census Microdata in the Classroom

This SBIR Phase II project proposes to research ways to increase accessibility and utilization of microdata from censuses of the U.S. and other countries in secondary school and college courses in mathematics. A seamless, XML-driven interface to a web server at the Minnesota Population Center will make it possible for teachers and students to specify, request, and import this microdata into Fathom Dynamic Statistics software. Enhancements to Fathom software will increase its already considerable ease and power for working with census microdata; curriculum materials in mathematics will provide teachers with effective ways to begin working with this highly motivating data--both to teach existing content and to teach data literacy. Phase I research suggested strong similarities between census microdata and school census microdata data that is gathered by K-12 schools about student demographics and performance, course offerings, and classroom practice. Accordingly, Phase II leverages this overlap to produce greatly needed interfaces for easily accessing school census microdata, survey tools for producing it, and extensions to Fathom for analyzing it.
KCP Technologies' census microdata project exploits the merging web connectivity in American schools, thus symbiotically fitting a larger pattern of evolution of school technologies. The project offers a product that supports analysis of complex data through an easy-to-use interface which will contribute to data anlysis and learning from data analysis. U.S. education is very much in need of the kinds of software and curriculum resources to be produced under this project